Computer and Information Sciences Undergraduate Laboratory Enhancement: A Telecommunications Specialization

This project will enhance UAB's undergraduate program in computerscience by creating a new telecommunications laboratory to support a new specialization in telecommunications. The term"telecommunications" is used in the broad sense to include currentconcepts of information networking and distributed computing,especially client-server heterogeneous applications.